Acquisition of an In-Situ Short-Wavelength Excimer-Laser Patterning System for Fabrication of Micro & Nanostructures in Molecular Beam Epitaxy

9512560 Sadra This proposal requests a laser-patterned system for the in-situ fabrication of III-V semiconductor devices. The system consists on an ArF/F2 excimer laser with patterning optics, etching chamber and hardware to couple with an existing molecular beam epitaxy (MBE) facility. The additional equipment will extend the PI's research program into promising areas, such as new devices and semiconductor fabrication equipment. The advanced device structures which might result from this effort are devices needing multiple regrowth operations. The ability to perform growth, patterning, etching and overgrowth in a reliable manner without removing the substrate from the vacuum would provide an important step forward in the use of MBE technology. ***